Oceanographic Instrumentation

0138703
Willis
This award to Oregon State University provides instrumentation to significantly improve the oceanographic research capabilities of the institution and the research vessel Wecoma, an NSF-owned ship operated by OSU as part of the University-National Oceanographic Laboratory System research fleet. The award supports acquisition of a phased array 75 kHz acoustic current profiler that is expected to significantly improve the R/V Wecoma's capabilities for measuring currents. It also provides upgrades to the piston corers of the NORCOR facility and improvements to the shipboard computer network on R/V Wecoma. All of these are shared-use capabilities that are available to all funded users of the R/V Wecoma, or in the case of the coring systems, users of any UNOLS vessel. These improvements will be of substantial advantage to marine scientists during 2002 and future years.
***